Group Travel Grant for Faculty at Minority Institutions to Attend FSE-12

ABSTRACT
0441530
Harrold, Mary
GA Tech Res Corp

The Taulbee Survey reports disappointing statistics on the number of women and minority com-
puter science Ph.D. recipients during the 1990s. Only 15% of all Ph.D. recipients were women, only
2% were black, and only 2% were Hispanic. In an effort to improve the representation of women
and minorities in computer science, as the organizing committee of the 2004 ACM SIGSOFT Con-
ference on the Foundations of Software Engineering (FSE-12), we are developing a plan to help
increase the participation of faculty from institutions with a large minority and/or female student
enrollment. We will target institutions that have large populations of women, African Americans or
Hispanics. Since the conference will take place in California, we expect to be able to attract faculty
that teach Hispanic students. Our plan is to invite faculty actively involved with the education of
women and minorities to attend FSE-12 tutorials and conference. As part of our tutorial series,
we will provide tutorials for the selected faculty to help them in their teaching. They also will be
invited to the conference to stimlate their interests in software engineering and thus their students'
interests. To help support our effort, we request NSF funding to provide travel and registration
grants for these participants, who may not otherwise have sufficient institutional funding to attend.